III: Medium: Collaborative Research: Geometric Network Analysis Tools: Algorithmic Methods for Identifying Structure in Large Informatics Graphs

There has been an enormous amount of work in recent years directed
toward understanding the structural and dynamical properties of
"informatics graphs" or "complex networks." Most of this work has been
on small to medium-sized networks, and it has led to an improved
understanding of the properties of networks arising in many graph
mining applications. In spite of this, formulating appropriate models
for and answering even basic questions about larger informatics
graphs remains challenging. For instance, recent work has shown that
dynamic properties as well as basic structural properties of large
informatics graphs are not reproduced even qualitatively by popular
network generative models.

The proposed work will use traditional and recently-developed
approximation algorithms for the graph partitioning problem as
"experimental probes" of large informatics graphs in order to
characterize in a more robust and scalable manner the structural and
dynamic properties of very large informatics graphs. This will
include extending and implementing recently-developed algorithms such
as "local" spectral methods and algorithms that intuitively
"interpolate" between spectral and flow-based methods, as well as
revisiting in light of new applications traditional methods such as
the global spectral method and ideas underlying the popular package
Metis. A central goal will be to provide the analyst with tools that
have sufficient algorithmic and statistical flexibility to
characterize the local and global structures of large networks in a
rich and robust way.

The Intellectual Merit of the proposed work lies in extending recent
theoretical and algorithmic developments and applying them to very
real-world problems. The Broader Impact of the project lies in
enhancing interdisciplinary education at Berkeley and Stanford and
more generally. This will involve the organization of meetings and
courses that will include the opportunity for research projects,
including by students from underrepresented groups, that focus on
bridging theoretical methods and real-world applications. For
further information see the project web page:
URL: http://cs.stanford.edu/people/mmahoney/graphmining/